SDCI NMI Improvement: The Ring Buffer Network Bus (RBNB) DataTurbine Streaming Data System

National Science Foundation
NSF Software Development for Cyberinfrastructure (SDCI) Program
Office of Cyberinfrastructure

Proposal Number: 0722067
Principal Investigator: Tony Fountain
Institution: University of California-San Diego
Proposal Title: SDCI NMI Improvement: The Ring Buffer Network Bus (RBNB) DataTurbine Streaming Data System

Abstract

This project will transition the commercial system DataTurbine into an open source software system, while specifically enhancing the middleware across a number of areas. DataLogger supports reliable data transport and the integration of sensors and remote instruments into Cyberinfrastructure through a set of services supporting data streaming and management. Work areas include visualization, single sign-on, adding datalogger drivers, benchmarking, porting to 64-bit architectures, and other enhancements. Intellectual merit lies in the realization of bringing sensors into the CI continuum and insights gained in applying this technology to observing systems. Broad impact includes direct operational integration for a number of NSF observing systems, including NEON, NEES, and CUAHSI.